Cohomology and Actions of Finite Groups

The principal investigator will apply techniques from algebra and
topology to study a number of basic questions in transformation
groups, orbifolds, field theory, group cohomology and related topics.
Among other things he proposes the following research projects:
(1) construction of finite group actions using methods from group
cohomology and homotopy theory; (2) research on representation spaces
and K-theory of the braid groups and other discrete groups; (3) algebraic
topology of orbifolds: the development and study of topological invariants
associated to orbifolds; (4) field theory and cohomology of groups: the
analysis of Galois groups using cohomological methods; and (5) computation
of the cohomology of low rank simple groups, using a combination of
theoretical and computer-assisted methods.

This proposal is interdisciplinary in its conception, as it intends
to combine methods from algebra and topology to address a broad range
of problems. Symmetry is a topic of central interest in mathematics,
which can be effectively studied using topological methods. Research
on mathematical aspects of orbifold string theory is representative
of the emerging fusion between geometry and physics. Many important
ideas have originated in physics and they consistently lead to the
opening of new frontiers in mathematics. On the other hand the cohomology
of groups is a subject involving intricate algebraic invariants which
very naturally play a role in representation theory, number theory,
field theory, etc. Recent techniques use advanced methods and capabilities
from computer algebra, and the proposed calculations will serve as benchmarks
for further computational as well as theoretical developments in the
field--with many potential applications. This proposal will seek to develop
close and fruitful interactions between topology, algebra and physics,
helping to consolidate the cohomology of groups as an interactive subject
involving both theoretical and computational methods.